Linear and Permutation Representations of Groups and Coverings of Curves

The investigator and his colleagues study permutation and linear
representations of finite and algebraic groups. The focus is
on primitive permutation representations and irreducible
linear representations. These results will be applied to
monodromy groups of coverings of curves and higher dimensional
varieties over finite fields and to various questions in
probabilistic group theory. The investigator expects to make
significant progress on outstanding conjectures about automorphism
groups of curves in positive characteristic, the size of images
of rational points for maps between varieties over finite fields
and monodromy groups of coverings of curves of small genus.
In characteristic zero, the investigator and collaborators plan
to obtain a complete classification of the possible monodromy
groups of indecomposable rational functions. This is a much
more ambitious project than the solution of the Guralnick-Thompson
conjecture that was recently solved. The techniques involve
detailed analysis of properties of simple groups and translating
problems in arithmetic algebraic geometry to group theory.
Many of these results will give detailed information about
questions in probabilistic group theory as well.

Since the classification of finite simple groups was announced
in the late 1970's, there have been some remarkable applications
of this theorem in many areas of mathematics. This proposal
continues in this tradition. There is also a long history of
translating problems in number theory and geometry (particularly
over finite fields) to group theory. The investigator intends
to obtain quite detailed results about finite simple groups
and their subgroups. Some of the investigation into finite simple
groups is quite natural but other aspects are motivated by applications
to curves and varieties over finite fields. This will give insight into
various problems about maps over finite fields -- in particular, about
polynomials and rational functions. This has applications to
coding theory and cryptography as well as answering basic
questions in the field. A special case of this is the study
of "exceptional" polynomials. These were first studied by
Dickson in his thesis in the 1890's. The major result in
the area, using the classification of simple groups, was only
obtained in 1993 by Fried, Saxl and the proposer. The investigator
intends to classify all such polynomials. These results about
simple groups will also give detailed information about probabilistic
generation of finite groups. These kinds of questions have become
increasingly important in the design of algorithms in computational
algebra. These results show that by following certain recipes, one
can be reasonably sure of picking a generating set for your
favorite finite group.